Crossover Designs and Orthogonal Arrays

----------------------------------------------------------------------- Proposal Number: DMS 9803684 PI: John Stufken Institution: Iowa State University Project: Crossover Designs and Orthogonal Arrays Abstract: This research furthers the understanding of two of the most useful types of statistical designs: crossover designs and orthogonal arrays. In a crossover design each of several subjects receives multiple treatments, one at each of several time periods. The design problem consists of selecting the sequences of treatments to be used, and of deciding how often to use each of these sequences. While practical considerations play a major role, answers based on statistical considerations differ depending on the assumptions about the statistical model for the measurements. This research involves finding efficient practical designs under various realistic model assumptions. We use these results to identify designs with good properties for most models. Concerning orthogonal arrays, this research provides new methods for the construction of mixed orthogonal arrays, as well as an extensive library of such arrays. In addition, compound orthogonal arrays are studied for their properties when used in a factorial experiment to detect location and dispersion effects simultaneously. Designed experiments are an integral part of scientific research and of product development and improvement in industry. Crossover designs and orthogonal arrays play a particularly prominent role. Crossover designs are best known for their role in medical research and in clinical trials, where they are used in studies to compare two or more treatments, possibly including a placebo. Orthogonal arrays play a crucial role in quality improvement and assessment studies in all of manufacturing. They are, among others, used in studies to determine the possible effect that changes in a manufacturing process have on the quality of the final product. This research helps to improve the efficiency of such trials and studies by identifying better designs and by making such designs widely available.